An Undergraduate Laser Beam Machine Tool Facility

This project involves the acquisition of a laser beam machine tool to expand the capability of the existing welding and manufacturing process facility. The machine tool's laser is a coherent beam of light that can be focused to a high energy density spot for the welding, cutting, drilling, heat-treatment or marking of engineering materials. Although applied mostly to metals, the laser beam can also be used to machine non-metals such as plastics or composite materials. These versatile machine tools are being routinely used by industry to reduce costs and improve the quality of manufactured products that require welding, cutting, drilling, surface treatment, or marking and will be similarly used in this laboratory. The award is being matched with a greater amount (103%) by the principal investigator's institution. //